Materials Research Laboratory

The Materials Research Laboratory (MRL) at Northwestern Univ- ersity supports interactive, interdisciplinary research with the overall theme of "the science of new materials". The research is organized in five major thrust areas. Research on electroactive polymeric and molecular materials addresses charge transport phenomena in these materials. It includes synthesis, processing, characterization, and theory. Emphasis during the current funding period is being broadened to include the coupling of charge transport with magnetic, photochemical and redox processes. The thrust on heteroepitaxial growth of strained layer structures addresses the epitaxy of compound semiconductor materials, with emphasis on nucleation, growth, and relaxation mechanisms in strained layer structures; electronic and optical properties of these structures; and theoretical modelling and simulation of experimental results. Research on macromolecular nonlinear optical materials is concerned with the design, synthesis, processing, characterization and theory of polymeric materials whose nonlinear optical characteristics make them promising candidates for eventual use in optical and optoelectronic devices. The growth and properties of novel electronic and photonic metal oxide thin films is being investigated in a fourth thrust area. Finally, a new thrust group addressing unconventional superconductivity in heavy fermion materials is studying a uranium-platinum compound, both theoretically and experimentally, in order to understand its superconducting properties and elucidate the change in electronic structure that leads to delocalized electronic behavior. A long range goal is to provide a basis for better understanding of other superconducting materials, including the high temperature oxide superconductors. The MRL also supports the development, operation and maintenance of major central facilities for materials research. It provides seed funding for exploratory research, supports programs in education and the development of human resources in the materials field, and is developing a range of programs for outreach to industry. The MRL currently supports the activities of about 30 faculty members from five academic departments, 8 postdoctoral research associates, 28 graduate students, 20 undergraduates including about 10 minority students, and 6 technical and scientific staff members. The MRL central facilities also support a substantial amount of research that is funded from other sources. The Northwestern MRL is directed by Professor Robert P.H. Chang.